Planning IUCRC at Mississippi State University: Center for Environmental Sustainability through Insect Farming

Food demand from the growing human population is expected to increase 100% over the next 40 years; however, predicted growth in agriculture production will fail to meet demand by ~40%. The inability to meet future food demands places more pressure on the one billion individuals currently underfed and living in substandard conditions throughout the world. These limitations will manifest into amplified social pressures such as, but not limited to, increased rates of disease, demand for land and water resources, and a lack of agricultural entrepreneurship, which only further weakens the global economy. A sustainable method (i.e., practical and economical) for remediating agricultural waste, while producing high value protein is essential to the long-term health of ecosystems and agriculture. One solution is the utilization of insect farming to convert organic wastes, which will potentially produce alternate resources of monetary value for the farmer. Insect farming can produce enormous amounts of protein and lipids that can be used in a variety of commodity settings (e.g., feed production, compost, biofuels, human food in some cases). And this production of alternative protein sources is less environmentally straining than most currently used methods in terms of reduced land and water usage and reduced emissions.

The Center for Environmental Sustainability through Insect Farming (CESTIns) will be comprised of three sites (Texas A&M AgriLife Research [TAMU], Indiana University-Purdue University in Indianapolis [IUPUI], and Mississippi State University [MSU]), with each site specializing in a specific area of research. The purpose of the MSU site is to: 1) Investigate insect microbiomes to optimize, and to evaluate their utility for increased insect nutrition, nutrition as feed, and waste conversion; 2) Conduct experiments to determine effects of probiotic supplementation on insect nutrition, feed nutrition, and waste conversion; 3) Use classical and molecular microbiology to develop and implement management plans for quality assurance (prevention) and control (detection) of microbial pathogens. MSU will work with the other sites to integrate research thrusts across the three sites with IUPUI and TAMU focusing on genetics, insect biology, and engineering and feed trials, respectively. Further, all three sites will work with strains produced by Industry as well as strains developed internally as a means to optimize mass production. Laboratory and field-based experiments will also engage interdisciplinary expertise in microbiology, engineering, chemistry, food nutrition, physiology, and vertebrate biology with cutting edge technologies.